13th International Conference on Defects in Insulating Materials to be held at Wake Forest University, Winston- Salem, North Carolina, July 15-19, 1996

9510390 Williams The 13th International Conference on Defects in Insulating Materials will be held July 15-16, 1996 at Wake Forest University. The Conference will focus on wide-gap materials and their defects in bulk and interface regions. A wide range of scientific and technological topics will be covered. The scientific sessions will feature theoretical (computational) methods and experimental techniques for understanding defect physics. Ferroelectric memory materials, gate insulators, blue diode laser materials, and fiber optics are some of the technological problems to be discussed. %%% The 13th International Conference on Defects in Insulating Materials will be held July 15-16, 1996 at Wake Forest University. The Conference will focus on wide-gap materials and their defects in bulk and interface regions. A wide range of scientific and technological topics will be covered. The scientific sessions will feature theoretical (computational) methods and experimental techniques for understanding defect physics. Ferroelectric memory materials, gate insulators, blue diode laser materials, and fiber optics are some of the technological problems to be discussed. ***